Large wood in low-gradient floodplain rivers: Spatial distribution, physical controls, and geomorphic effects

This project will advance understanding of the dynamics of large wood (LW) in Coastal Plain rivers of the Southeastern US. LW (logs within rivers) provides many benefits, affecting the transport of sediment, the form of river channels, and the functioning of aquatic ecosystems. Most previous research on LW has been conducted in small streams, often in mountainous regions, or in gravel-bedded rivers. This project will examine the distribution, mobility, and effects of LW in relatively large, gently sloped, and fine-bedded rivers of the Coastal Plain. The results will have implications for forest and river management in this region, where LW was once abundant but has been reduced because of human activities. The project will also provide benefits in terms of student training and in educating the public about the benefits of LW through a new citizen-science initiative that will be implemented in collaboration with Riverkeeper organizations across North Carolina.

The proposed research seeks to characterize the spatial distribution of large wood (LW) in low-gradient floodplain rivers, the physical controls on LW recruitment and transport, and the effects of LW on channel process and form. LW (generally defined as pieces of wood at least 1 m in length and 10 cm in diameter, located in the active channel) has long been recognized as a significant driver of physical and ecological processes in river systems. Nevertheless, most knowledge of LW in rivers is based on studies of small to medium-sized rivers in steep headwater catchments, such as in the mountains of the western United States. There is therefore a need for a systematic analysis of LW dynamics and their influence on geomorphic processes in low-gradient floodplain rivers. The research will investigate the spatial distribution of LW at reach and regional scales through field measurements and remote sensing, the physical controls on LW recruitment through statistical modeling, LW transport through episodic and continuous tracking, and the effects of LW on channel process and form and the physical drivers of those effects through physically based modeling. The results will contribute to the understanding of coupled physical and ecological dynamics in river systems. Broader impacts include training of students at a Minority Serving Institution, dissemination of research results to state land- and water-management agencies, and a new citizen-science initiative to collect data on LW in rivers and to educate the public about the benefits of LW.